Strategic Summit on the Computing Education Challenges at Community Colleges

This project supports the running of a two-and-a-half day event, a Strategic Summit on the Computing Education Challenges for Community Colleges, designed to frame the challenges of the next five years and beyond of computing education. A diverse group of experts, from industry as well as from academia, is brought together to engage in focused round table discussions to address just one question: "What are the major challenges confronting computing programs in community colleges spanning the next five to ten years?" This then constitutes the primary goal of this project and the core intellectual merit. The proceedings from this event serve to steer and influence initiatives and funding proposals to NSF in the coming years. A secondary goal, arising naturally from the first, is to subsequently share these conclusions widely - to achieve the highest level of broader impact - in order to spur initiatives and grant proposals which respond to these challenges.